Mathematical Sciences: Applications of Topology to Biology and Chemistry

This project continues earlier studies of applications of topology to problems in biology and chemistry. There are three main areas of effort. The first is the application of classification and quantification techniques in knot theory to the analysis of enzyme-DNA three-dimensional structure and enzyme mechanism. Mathematical models, such as the tangle model, will be developed and perfected, the aim being to produce a mathematical tool of use to the experimental molecular biologist. The mathematics used here is recent work in the theory of 3-manifolds, and the biological input is experimental results obtained from the topological approach to enzymology. The second area is the study of the topological entanglement of random chains in 3-space. Random chain entanglement statistics are related to the conformational entropy of a polymer system in dilute solution. Asymptotic entanglement (as the length goes to infinity) is reasonably well understood; the fundamental problem of scientific interest is the description and computation of entanglement at finite lengths. Both rigorous mathematics and simulation techniques will be employed. The third area is the topological description of spiral wave patterns in excitable media. The methods of differential topology and obstruction theory will be used to provide necessary and sufficient conditions for the existence and time evolution of patterns on bounded orientable 3-manifolds. A central problem in molecular biology is to deal with long-chain DNA molecules. The way they fold, replicate, and recombine is intimately bound up with their functions. The behavior of long-chain polymers in solution is a more general form of the same questions. Important applications arise in genetic engineering, the design of drugs, and the development of long-chain polymers for industrial and technological uses. Knot theory is a part of topology that studies exactly these kinds of questions: how structures fold and recombine and replicate.